Establishment of a State of the Art Facility for Elemental and Isotope Analysis of Earth Materials

9977588
Bowring

This award provides partial funding for the acquisition of two mass spectrometers that will be installed and operated in the Department of Earth, Atmospheric, and Planetary Sciences at the Massachusetts Institute of Technology. MIT is committed to providing the remaining funds necessary for the acquisition. The instruments will be used by MIT faculty researchers and their students in high-precision geochronology to address the rates of change in biological and geological processes throughout the course of Earth history. The analytical capabilities of the new instruments will also be applied to developing the use of geochemical and isotopic tracers to understand ocean circulation and rates of change in ocean chemistry. Other uses will be made in the fields of paleontology, mantle geochemistry, crustal evolution, chemical oceanography, climate change studies, and environmental geochemistry.
***